Testing a Kinetic Hairpin Transfer Model of Parvoviral DNA Replication

The DNAs encapsidated by parvoviruses show distinctly different patterns with respect to the ratio of plus to minus strands and the preponderance of the flip as opposed to the flop conformation at the termini. We have developed a kinetic model for parvoviral DNA replication, based on differential rates of hairpin transfer at the 3' termini that initiate replication, that accounts for the characteristics of the progeny virion DNA of the parvoviruses. We propose to test specific predictions of the model, thereby validating it or showing where it might need re-adjustment. The flip-flop ratio at the left end of the plus strand of Lulll will be determined to distinguish between the kinetic hairpin transfer model and the modified rolling circle model, which requires a unique flip conformation at this location. The polarity and flip- flop ratios of progeny DNA of dimeric BPV genomes with duplicate or inverted ends will be investigated and compared with computer predictions based on the relative rate constants for hairpin transfer associated with each terminus. Site-directed mutagenesis will eliminate "bubbles" associated with flip and flop conformations and the effect of these changes on replication and progeny DNA characteristics seen. Conclusions from the projected work will result from the collaborative efforts of a biologist and a mathematician. Neither scientist could effectively undertake this project without the input of the other scientist.*** //